The 1994 IEEE International Symposium on Information Theory -- June 27 - July 1, 1994: Norway

941068 Heegard The 1994 IEEE International Symposium on Information Theory will be held at the Technical University of Trondheim in Norway from Sunday evening, June 27, 1994 through Friday afternoon, July 1, 1994. Papers presented will address new results in: applications of information theory, image and speech coding, communication systems, multi-user information theory, cryptography and security, neural networks, data compression, optical communications, data networks, pattern recognition, detection and estimation, Shannon theory, distributed information processing, signal processing, error-control coding. source coding, and stochastic processes. This symposium is a premiere meeting in the field of Information theory. Travel through this grant will provide travel support for young researchers presenting papers. ***